Instrumentation for an Integrated Undergraduate Laboratory Program

The Chemistry Department at Albion College has based its efforts in curriculum development and the preparation of instructional materials on the premise that a chemistry curriculum should: (1) be designed for the specific students it serves; (2) serve majors and non-majors equally well; (3) provide maximum flexibility; (4) reflect current practice in chemistry and chemical education at all levels of the curriculum, both in the classroom and the laboratory. Current laboratory practice dictates the involvement of students with modern instrumentation, an outcome which is being enhanced by the recent acquisition of a nuclear magnetic resonance (NMR) spectrometer. This instrument is being utilized by students in laboratory courses in organic chemistry, advanced laboratory instrumentation, and advanced laboratory projects. In addition the availability of the NMR broadens the range of possibilities for student research projects.